Sensors: Design of smart miniaturized sensor and interpretation of sensor data in intelligent diagnosis of mechanical-pneumatic systems

Abstract
0428403
Imin Kao
SUNY at Stoney Brook
This project aims at integration of smart sensors and methodology in the interpretation and collaboration of sensor data for the diagnosis of mechanical-pneumatic systems. The objectives of this research project are to: (i) design and fabricate miniaturized, multi-function, and telemetric sensor, integrated to engineering systems, and (ii) interpret sensor data in decision-making process for fault detection and diagnosis (FDD) with both model-based and feature-based approaches. Using new smart multi-function, telemetric, and integrated sensors as "intelligent nodes" in systems will provide necessary sensory information (e.g., pressure, flow, and temperature) for the next-generation diagnosis. University at Stony Brook, in collaboration with Festo Corporation, Hauppauge, NY, and Bremen University, Germany, will perform the fundamental research on smart sensors and intelligent diagnosis to investigate advanced telemetric MEMS sensors design and various techniques to enhance the selectivity, speed, and robustness of systems. This project has GOALI collaboration with Festo Corporation to apply research results in MEMS and FDD to mechanical-pneumatic systems, and to maximize the broader impact of the technology, in addition to broader educational impacts involving the incorporation of research results in curriculum and various focuses in education.
This is a GOALI project supported under the Sensors Initiative NSF 04-522.